GOALI: Modeling, analysis and numerical simulations of gels in the biomedical industry

Calderer
DMS-1009181

This GOALI project supports a collaboration between
investigators at the University of Minnesota and at Medtronic,
Inc. To improve the design of implantable medical devices, the
investigator and her colleagues develop fundamental understanding
of, and modeling tools for, polymer and solvent interactions that
result in swelling of the polymer. Many implantable devices
consist of plastic and metal components that are affixed to each
other by adhesives. When such a device is placed in the human
body, the plastic parts, made from polymer, interact with the
surrounding fluid and swell, while the metal parts are not
affected by the fluid. The consequent swelling mismatch causes a
high stress at the interface, which can lead to deformation of
the components and, if interfacial shear stresses exceed critical
values guaranteed by the adhesive manufacturer, to interface
delamination. Deformation and delamination can cause devices to
fail. The ability to model the behavior of the components is
critical in the design of implantable medical devices, such as
defibrillators, pacemakers, and neurological devices. This
project addresses the questions:
(1) How does polymer swelling proceed without polymer chain
relaxation? (Only elasticity is accounted for, and viscous
effects are neglected.)
(2) How does swelling proceed when polymer chains relax within
the same time frame?
(3) How does swelling proceed if there is mechanical strain
applied to the sample?
(4) How does swelling proceed if two samples made of the same
polymer but with different initial swelling are bonded together?

Many polymers can absorb an amount of water equivalent to
about 1 percent of their own weights; hydrogel can absorb water
many times its own volume. Swelling of polymers occurs in many
applications, particularly in implantable biomedical devices,
made of metal and plastic polymer components, that typically are
buried in wet tissue. Polymers can relax mechanical loading and
deformation over time due to viscoelastic properties.
Swelling-induced stress or size changes can relax as well. The
actual stress and geometric changes in polymers are determined by
the combined relaxation and swelling process. Each of these
processes is related to water diffusion, polymer chain motion,
and water-polymer interactions. Estimation of these processes
and interactions is critical for understanding swelling-induced
deformation, delamination, and stability, key factors in the
design and quality control of medical devices. Building on an
existing collaboration between Medtronic Inc and the University
of Minnesota, the investigator and her colleagues develop
mathematical models, analysis, and computational and
visualization tools to improve fundamental understanding of
polymer and solvent interactions; the tools can be used to
identify unsuitable polymers and so reduce the number of
laboratory experiments performed by polymer scientists at
Medtronic by more than half. Students and postdocs are part of
the project, which also includes seminars, workshops, and
outreach activities sponsored jointly with Medtronic.